Developing teachers as computational thinkers through supported authentic experiences in computing modeling and simulation

The Discovery Research K-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics (STEM) by preK-12 students and teachers, through research and development of innovative resources, models and tools (RMTs). Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for proposed projects.

This project addresses the need for a computationally-enabled STEM workforce by equipping teachers with the skills necessary to prepare students for future endeavors as computationally-enabled scientists and citizens, and by investigating the most effective ways to provide this instruction to teachers. The project also addresses the immediate challenge presented by the Next Generation Science Standards to prepare middle school science teachers to implement rich computational thinking (CT) experiences, such as the use, creation and analysis of computer models and simulations, within science classes.

The project, a partnership between the Santa Fe Institute and the Santa Fe Public School District, directly addresses middle school teachers' understanding, practice, and teaching of modern scientific practice. Using the Project GUTS program and professional development model as a foundation, this project will design and develop a set of Resources, Models, and Tools (RMTs) that collectively form the basis for a comprehensive professional development (PD) program, then study teachers' experiences with the RMTs and assess how well the RMTs prepared teachers to implement the curriculum. The PD program includes: an online PD network; workshops; webinars and conferences; practicum and facilitator support; and curricular and program guides. The overall approach to the project is design based implementation research (DBIR). Methods used for the implementation research includes: unobtrusive measures such as self-assessment sliders and web analytics; the knowledge and skills survey (KS-CT); interviews (teachers and the facilitators); analysis of teacher modified and created models; and observations of practicum and classroom implementations. Data collection and analysis in the implementation research serve two purposes: a) design refinement and b) case study development. The implementation research employs a mixed-method, nonequivalent group design with embedded case studies.